Computer Science, Engineering, Mathematics Scholarship Program

This proposal requests funding to support 40 students of high ability and financial need with a $2,500 scholarship award per year for two years to pursue studies in Computer Science, Engineering, and Mathematics (CSEM). The objective of the program is to provide academic opportunities to these students, coming from low-income families, who otherwise might not be able to achieve these goals, to provide an improved education with academic support courses, and improve their retention rate by lowering their employment load.

A committee of key personnel from the CSEM departments at California State University, Bakersfield (CSUB) will overlook this program and develop the academic support structure, which is necessary to provide encouragement to the students as they move towards graduation in their chosen fields or towards transfer to Engineering School.